Global Control of Nonlinear Systems with Uncontrollable Unstable Linearization: A Non-Smooth Feedback Framework

0203387
Lin

This program will systematically develop a nonsmooth feedback design
methodology for the control of genuinely nonlinear systems that may not
be dealt with, even locally, by any smooth feedback. Nonsmooth feedback
designs offer the potential to overcome some topological obstructions of
the system that cannot be addressed by smooth controls, for example, to
globally stabilize a nonlinear system that is not stabilizable by any linear
or smooth state feedback. The research will address some of the most
critical and challenging issues in the field of nonlinear control, including
global strong stabilization, practical output tracking and adaptive control
for nonlinearly parameterized systems with uncontrollable unstable
linearization. A unique thread in our development is the explicit
construction of homogeneous-like Lyapunov functions and non-Lipschitz
continuous controllers, based on a synthesis of methods drawn from
differential geometric control theory, homogeneous systems theory, as
well as the development of feedback domination design techniques for the
control of nonlinear systems whose Jacobian linearization contains
uncontrollable modes associated with eigenvalues on the right-half plane.
This work will also include a geometric characterization and a higher-
order normal form for a significant class of nonlinear systems.

Many control systems of practical importance (e.g. internet network,
manufacturing systems, biomimetic actuator systems, electrically
stimulated muscles, underwater or aerospace vehicles and so on) have
genuinely nonlinear characteristics that cannot be dealt with by existing
feedback design methods; most of them are smooth in nature. In fact, a
goal of active research has been to transform a physical dynamic system
into a linear one for which the well-developed modern control techniques
(linear systems theory) are readily applicable. These "linearizing"
techniques have serious limitations due to canceling the system
nonlinearity by feedback or neglecting the complexity of dynamic
systems. Consequently, these design methods have not found wide
applications in a number of new real-world problems, such as control of
complex network (e.g. internet or power systems network) or controlling
the position and speed in sophisticated weapons (e.g. missiles and
advanced combat aircraft). The purpose of this research is to find ways to
take advantage of the potentially dramatic, though nonintuitive, effects
caused by the inherent nonlinearity or complex interactions of physical
forces with physical systems. The main outcome of the proposed research
will be new, nonsmooth feedback design methodologies for the control of
dynamic systems. It is expected that the benefits to a systematic approach
towards using nonsmooth control will be becoming widely appreciated,
particularly in industries (e.g. manufacturing, aerospace, power and
biomedical engineering) where many applications of nonsmooth control
can be found.